The Effects of Gender Role Socialization on Familial and Occupational Role Performance Among Women

The Research Improvement in Minority Institutions (RIMI) program provides support to increase the participation of minority faculty and students in science and engineering by strengthening the research environments and capabilities of institutions that have significant minority student enrollments. Researchers at Jackson State University will use support from this planning and developmental grant to develop integrated theoretical perspectives in sociology to examine the effects of gender role socialization on familial and occupational role performance among women. The researchers will also develop strategies to measure and interpret data on familial and occupational socialization factors. The principal investigator is an experienced minority sociologist and researcher who has a commendable publication record. This planning and developmental grant will further strengthen the capability of sociologists at Jackson State to perform mainstream research.